Innovation Exchange: Exploring Portability of Systemic Reform

Four institutions working on technology-anchored curriculum reform propose to develop a collaboration to explore effective models of technology-anchored teaching and learning, determine how models can be transported and how teachers, administrators, and researchers can collaborate to support and sustain such reforms.